Creativity Award for Undergraduate Engineering Students

The investigation covers a novel general purpose transport model, embodied in an artificial intelligence based computer code, and its initial application to the solution of the radiation heat transfer problem critical to the analysis of crystal growth in a semitransparent ampoule exposed to heater cores with non-unity view factors. The computational methodology is based on a discrete particle model of transport being solved using a recursive tree, a common tool used in the implementation of expert systems, and is suitable for solving a wide range of transport problems. Use of a recursive tree facilitates the convenient computational description of complex interactions and geometries common to contemporary transport problems. The development and availability of this modeling technique and its embodiment in a well documented, portable and conveniently user extensible computer code results in advances in radiation heat transfer and fluid mechanics problems.